NSF Young Investigator

9357234 Gauthier This NYI award will support the research of a promising and accomplished young investigator. His research will include a study of the dynamical behavior of different types of two-photon lasers. Topics will include measuring photon fluctuation noise and photon correlation properties. ***